Application of Electronics to Teaching High School Physics and Computer Science

This project will bring twenty-five high school physics and computer science teachers from the state of Wisconsin to the University of Wisconsin-Superior during the Summer of 1988 to participate in a two-week workshop on electronics to better prepare them to teach high school physics and computer science. Teachers selected for the program will learn concepts in basic and advanced electronics including electronics as it applies to the microprocessor. A significant portion of the workshop will be devoted to the development of strategies and materials for use by the teachers in their classrooms, In addition, participants will be able to choose self-paced modules in specialized areas of electronics in which they way want to develop a better understanding. The teachers will be expected to develop an electronics project to assist their teaching. This project will be utilized in their classroom during the following school year and the results of its effectiveness will be determined. A teacher's guide of classroom strategies will be developed by the participants in a follow-up seminar to be held in the winter of 1988-1989. This guide will be available to 19 CESA agencies in the state of Wisconsin and will be distributed to the Wisconsin Society of Science Teachers. Copies will be sent to the Department of Public Instruction in each state office.